A Collaborative Approach to Science and Mathematics Education for Urban Students, Especially Black and Hispanic,Grades 7-12

The GMI Management & Engineering Institute has developed a human network based in Michigan which includes major employers, university professors and administrators, associations of professional engineers, five city school districts (in primarily minority dominated areas), organized labor, and community organizations. The network is dedicated to the task of improving science and mathematics education in inner-city schools grades 7-12 by focussing on three related strategies. The first strategy is directed to affecting culture changes within the participating inner-city school communities. The second strategy is to assemble a team of outstanding instructors to deliver four innovative courses via live, interactive satellite transmission. Three of the courses are based on NSF sponsored projects: MSU Middle Grades Mathematics Project, Lawrence Hall-Foss Physical Science for Middle School, and High School Algebra. The fourth course, high school physical science, was developed by a science committee of the University of Michigan faculty. The third strategy is to establish a mentoring system between scientists and mathematicians and students and school teachers to enhance the course content and the teacher's knowledge and to provide professional development opportunities for them. The Detroit-based pilot project, which will run for six months, includes ten schools (five high school, five middle schools) in five school districts and involves 24 teachers and 1040 students. Cost sharing in the amount of $466,500 is 300% of the NSF contribution.